POWRE: Top Quark Physics at the Tevatron

9870552 Narain This grant is made under the NSF "Professional Opportunities for Women in Research and Education" program. It will support a visiting professorship position for the PI, allowing her to spend 18 months at Boston University. At BU, she will establish a collaboration with the particle physics group there, continuing her studies of the newly-found top quark. In addition, the PI will teach several courses at BU. This participation in academic research and teaching will advance her career significantly.